Syllables and Boundaries

9977018
Fujimura

This grant will support a graduate student working on an ongoing project in phonetic research. The work will interpret dialogue speech data obtained by the PI's research associate, Dr. Donna Erickson, supported by a NSF grant (SBR-951198) with the current PI. The data analysis primarily pertains to jaw movement to evaluate syllable strengths in various prosodic conditions, with use of other articulators' movement patterns for determining a "central" time for each syllable. The segmental content of the syllables under study is limited to the words 'five', 'nine' and 'pine' in a street address correction situation of conversation. The data interpretation inferring syllable magnitudes for various degrees of prominence is in part based on the PI's C/D model, a syllable-based description of articulatory gesture organization. In particular, magnitudes of boundaries in the syllable-boundary pulse train, representing the prosodic organization of each utterance, are evaluated by first evaluating syllable durations based on jaw movement excursions. Simultaneously recorded acoustic signals are consulted for validating the quantitative interpretation of syllable-boundary durations purely from articulatory data.